Separability and logic in geometric group theory

Abstract

Award: DMS-0906276
Principal Investigator: Henry Wilton

This award is funded under the American Recovery and Reinvestment
Act of 2009 (Public Law 111-5).

The principal investigator will pursue several lines of research
motivated by three deep open questions in the theory of
word-hyperbolic groups. (1) Is every hyperbolic group residually
finite? If so, then in fact word-hyperbolic groups satisfy much
stronger separability properties. The PI intends to investigate
these separability properties for known examples of
word-hyperbolic groups and related groups, including 3-manifold
groups and relatively hyperbolic groups. (2) Is the elementary
theory of a torsion-free hyperbolic group decidable? Together
with Daniel Groves, the PI intends to give an affirmative answer
by proving algorithmic versions of the results of Sela. (3) Does
every word-hyperbolic group contain a surface subgroup? Little is
known about this famous question of Gromov, even for some very
basic examples of word-hyperbolic groups. The PI proposes to use
various new techniques to find surface subgroups in examples of
word-hyperbolic groups, including doubles of free groups along
maximal cyclic subgroups.

A group is a collection of symmetries, for example the collection
of all translations of the Euclidean plane that preserve the
integer lattice. This group is generated by the translations of
one unit of length in the north, south, east, or west directions,
in the sense that any element of the group can be obtained by
composing copies of those four basic translations. Every
finitely generated group carries a notion of distance between
pairs of its elements, defined by counting the number of
generators that must be applied to carry one element of the group
to another. These projects concentrate on word-hyperbolic
groups, which have many of the properties of the hyperbolic plane
from non-Euclidean geometry and are known to be so common that a
randomly selected finitely generated group is almost surely
word-hyperbolic. This award is jointly funded by the programs in
Topology and Foundations.